Mathematical Sciences: Research in Phenomena Occurring in Disordered Systems

Professor Klein's project has to do with mathematical models of phenomena that occur in disordered physical systems, for example superfluidity and superconductivity. Part of the work will involve analysis of the Ma-Halperin-Lee model for strongly disordered superfluids; this is a lattice model whose Hamiltonian contains a random term. Professor Klein will also continue his research on the Anderson model in solid state physics. Specifically, he will investigate spectral properties of random Schrodinger operators with dependent potentials, and will try to obtain weak disorder expansions in various situations. A great deal of mathematical physics is concerned with the modeling of physical systems by means of operators on spaces of functions representing the possible states of the system. In the general picture, a selfadjoint operator called the Hamiltonian, corresponding roughly to energy, can readily be written down on the basis of physical assumptions. A mathematically elegant and straightforward relationship then produces the time evolution of the system from the Hamiltonian. This relationship is however more or less useless in specfic terms unless one knows something about the spectrum (possible energy levels) and associated mathematical paraphernalia for the Hamiltonian. Analyzing these is generally difficult and subtle. An additional complicating factor enters in when the Hamiltonian contains random terms, as apparently it must in order to model certain kinds of phenomena successfully, for instance superfluidity and superconductivity. Professor Klein's project is to enlarge our understanding of these sorts of random models.